2001 Gordon Conference on Analytical Chemistry - Exploring the Frontier of Measurements and Materials

Professor Paul W. Bohn and Dr. Carlyle B. Storm are funded through the Analytical and Surface Chemistry program to help fund the 2001 Gordon Conference on Analytical Chemistry. This conference is focused on chemical analysis and materials chemistry. The program aims to draw together leading scientists in both fields with young scientists and those from underrepresented groups to discuss how analytical methods can solve problems in materials science. The meeting is to be held in June 2001.